Travel Support for the Symposium on Architectures for Networking and Communications Systems (ANCS)

The second ACM/IEEE Symposium on Architectures for Networking and Communications Systems (ANCS), which will be held in San Jose, CA on Novenber 5-6, 2008. ANCS has been created to provide a top-tier venue to bring together researchers from the areas of computer systems architecture and networking systems, in order to foster greater collaboration between these increasingly related research areas.
This proposal aims to secure travel support to ANCS for students.